CEDAR: Observational and Numerical Studies of the Momentum Budget of the Extratropical Summertime Mesosphere

Combining the Upper Atmosphere Research Satellite and radar data, the PI gains information on circulations and momentum sources/sinks in the mesosphere and lower thermosphere (MLT). By properly combining radar and wind imaging interferometer measurements with High Resolution Doppler Imager winds, the PI can determine the MLT transport circulation directly from global wind observations. In addition, improved estimates of gravity-wave driving allows improved simulations of circulation systems in the MLT region and at stratospheric levels. Finally, the research will result in estimations of mesospheric winds from thermal data.